PostDoctoral Research Fellowship

This award is made as part of the FY 2019 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Noah M. Arbesfeld is " The representation-theoretic and combinatorial structure of moduli spaces of sheaves". The host institution for the fellowship is Imperial College, London, UK and the sponsoring scientist is Richard Thomas.